ACCESS I - Atmospheric Chemistry Colloquim for Emerging Senior Scientists, to be held June 14-16, 1991, Cambridge, MA

ACCESS will bring together, in scientific discussion and interaction, atmospheric chemistry doctoral candidates soon to receive their degrees, recent Ph.D.s, and funding agency representatives. The colloquium will provide the opportunity to forge future professional relationships, and the entire atmospheric science community will benefit by becoming more aware of innovations in atmospheric chemistry through these researchers' efforts. The colloquium will be held at MIT in Cambridge, Massachusetts, 13-15 June 1991 in conjunction with the 1991 Gordon Research Conference on Atmospheric Chemistry to be held in New Hampton, New Hampshire, 17-21 June 1991.